Young Scholars Program for Chemistry and the Life Sciences

9352967 Fishman The City College of the City University of New York seeks to provide enrichment experiences for an eight-week summer, commuter, Young Scholars project in chemistry and the life sciences (biology and biochemistry) for 20 students entering grade 12. The students will participate in a summer research experience, as part of a modern research team, with their own problem integrated into the larger disciplinary focus of the group. The research will be in tandem with a strong program of discussions, seminars, and field experiences.